Request for Funds for NSF Researchers to Attend an AFOSR/ONR/NSF Review Meeting

0123556
Danyluk
Funds are provided for attendance of thirty NSF funded researchers at a joint AFOSR/ONR/NSF grantees meeting in the topic areas of surface materials science and engineering and tribology. The meeting will take place in Florida on June 4-8, 2001. The NSF delegation will include eight students and a number of young researchers from underrepresented groups. The delegation members will present oral and poster reports and will participate in discussions and panels on potential future research directions. The abstracts of the presentations will be published by the AFOSR subsequent to the meeting.
***